Planktonic Foraminiferal Response to Oceanic Upwelling and its Sedimentary Record

Funds are provided for a one year sediment trap deployment in the California Current System off southern California. Time series data on planktonic foraminifera and hydrographic measurements on plankton standing stock will be obtained to test models of foraminiferal response to spring upwelling by comparison with previously collected trap data. Ancillary objectives are to develop ecological transfer functions and reconstruct history of upwelling over the past 20 k.y.